III: Mixed curvature spaces for single-cell functional genomics

Every cell in our body carries the same genetic blueprint, yet cells take on thousands of distinct roles, becoming skin, blood, nerve, or muscle. Scientists can now measure the activity of genes inside individual cells, one cell at a time, producing enormous and detailed pictures of how tissues are built and how they break down in disease. To make sense of these pictures, researchers must simplify them, much as a flat paper map simplifies the round surface of the Earth. The wrong kind of map can hide the very patterns that matter. This project develops a new family of maps for single-cell data that are shaped to match the biology they represent. In particular, the natural shape of maps for such biological the data is curved rather than flat. This is both because cells arise by repeated division, forming branching family trees, as well as because some cell processes repeat in cycles. Building maps with the right curvature promises clearer views of how healthy tissue develops and how cancer spreads, which in turn can support better diagnosis and treatment. The project also brings these ideas to a broad group of students, including K-12 students in New York City, undergraduates at Barnard College, and participants in summer research programs, using virtual reality to let learners walk through the space of cells and experience curved geometry firsthand.

Standard methods for analyzing single-cell genomic data embed measurements into flat Euclidean spaces, an assumption that cannot faithfully represent the branching lineage structure and cyclic processes that pervade biology. This project develops mathematical foundations, algorithms, and software for incorporating curvature into genomic inference, using spaces of negative curvature to capture inherited, tree-like cell identity and spaces of positive curvature to capture periodic processes such as the cell cycle. The research advances along three coordinated fronts. First, the project team will develop inference methods that embed single-cell data into negatively curved spaces and validates them against systems that carry independent lineage information, such as data in which cell ancestry is recorded through accumulated genetic edits. Second, the project team will develop models and classifiers for mixed curvature spaces, formed as products of flat, positively curved, and negatively curved components, so that a single representation can chart inherited, spatial, and cyclic cellular programs together. Third, the project team will develop tools to estimate curvature directly from noisy data, to distinguish genuine geometric signal from measurement artifacts, and to interpret which genes drive the observed curvature. The methods reduce to classification and regression tasks, allowing rigorous evaluation against established flat-space methods on both simulated data with known answers and externally measured biological datasets. All software will be released as open source to serve the wider research community.